Enhancement of the Nuclear Magnetic Resonance Facility

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) and Major Research Instrumentation (MRI) Programs, the Department of Chemistry at the University of Puerto Rico in Mayaguez will upgrade its NMR facility. This equipment will enhance research in the following areas: 1) synthesis, characterization and metal-DNA studies of titanonece antitumor agents; 2) synthesis and characterization of Ru(V) complexes as radiopharmaceuticals; 3) synthesis of symmetrical bis-partial intercalators and study of their effects on nucleic acid conformation; 4) mechanism upon substitution of H2S by oxygen binding to an unusual hemoglobin; 5) natural products; 6) synthesis and DNA interaction of Pt(II) complexes with heteroaromatic ligands; and 7) unsaturated organometallic complexes as C-H activators.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.